Local Concrete-Steel Interface at Low Temperatures

One of the relatively unexplored research areas of reinforced concrete is its response under sub-zero temperatures. In this research, experimental and analytical studies will be conducted on the local bond-slip relationships of reinforced concrete specimens in the temperature range between -10;soC and -40;soC. This temperature range covers most arctic coastal zones, sub-arctic, and temperate zones. Both normal and lightweight concrete specimens subjected to monotonic and cyclic loading conditions will be investigated. While there are a number of specific studies that may be conducted on the behavior of reinforced concrete under cryogenic conditions, the transfer of forces across the concrete-steel interface by bond is of fundamental importance to many aspects of reinforced concrete mechanics behavior.